Florida Georgia Louis Stokes Alliances for Minority Participation (LSAMP) Program (Phase III)

Florida Georgia Louis Stokes Alliances for Minority Participation (LSAMP) Program (Phase III)

Florida A&M University in coalition with Albany State University, Bethune-Cookman
College, Florida State University, University of Florida, University of South Florida,
University of Central Florida, Florida International University, Florida Memorial
College, University of Miami, Tallahassee Community College, Miami Dade Community
College, and Florida Community College at Jacksonville has developed a program to
significantly increase the quality and quantity of minority students successfully
completing science, engineering and mathematics (SEM) B.S. degree programs as well as
significantly increase the number interested in and qualified for matriculation into Ph.D.
SEM programs of study. Subsumed under these goals are the following measurable
objectives: at least quadruple the annual entry of minority B.S. graduates into Ph.D.
SEM programs from 100 (year 2001 baseline) to 500 over the next five years; (2)
increase by ten percent (baseline 2320), the number of B.S. degrees awarded to
underrepresented minorities in SEM disciplines by the year 2007; and (3) institutionalize
the FGLSAMP Project at each participating institution by 2006 to insure FGLSAMP
permanence after NSF funding ceases.

The Alliance proposes to utilize a holistic model to transition SEM scholars from high
school to college, positively influence their retention in college, enhance their B.S.
graduation rates from college and entry into Ph.D. degree SEM programs of study.
Project activities to realize these goals and objectives include developing structured
relationships with school systems and community colleges to attract students to SEM
majors; establishing workshops to increase student academic performance; implementing
a pre-matriculation institute; and implementing a pre-junior graduate school orientation
program and pre-senior research apprenticeship to stimulate student competence and
interest in graduate school.

The FGLSAMP Project will form partnerships with AGEP Projects, Ph.D. degree
granting institutions, other appropriate NSF agencies, national/governmental laboratories,
private foundations and private industry to assist in providing funds for research stipends
and graduate fellowships for student participants.

The Florida Legislature provides $640,000 in matching funds annually to support
participating Florida institutions in the FGLSAMP Project. The results from this project
will be shared with other institutions and scientists via reports, newsletters, FGLSAMP
EXPOs and published articles.